Design and Implementation of Algorithms for Symbolic Computation on Advanced Computer Systems

The proposed research by this experienced computer scientist will extend his previous work on advanced user interfaces for scientific software, thereby making it easier for other scientists and engineers to solve problems. Additional research will be performed on parallel algorithms for exact symbolic mathematical computation and on algorithms and systems for symbolic computation with complex variables.